SBIR Phase I: A Digital Platform to Assess Water Quality at Urban-Watershed Interfaces

The broader impact of this SBIR Phase I project is to help manage water quality at the boundaries of cities and watersheds. The proposed work develops a financial system to help cities and public utilities build infrastructure projects. This system integrates physical data with artificial intelligence and advanced monitoring systems. It will serve as a scalable analytics platform using environmental, economic, and social data for financing projects in water quality management.

The proposed project develops analytics and a financial instrument for environmental adaptation and water restoration projects. It uses open-source data management, sensors and interfaces, and mathematical models in a system with state-of-the-art artificial intelligence-enabled digital twin technology. The environmental data will be used in an integrated watershed model using principles of uncertainty analysis and neural network-based learning. The econometric model combines uncertainty analysis with reinforcement learning where accuracy in prognostics is incentivized.